NSF Young Investigator

9357512 Marand This NSF Young Investigator award deals with research and teaching in the area of phase transition phenomena in semicrystalline homopolymers, copolymers, polymer mixtures, and polyrotaxanes. The aim is to relate chemical composition, crystallization, and morphology to observed bulk properties. ***